Dynamics of Matter and Quantized Radiation

Abstract
Griesemer

The focus is on two projects. Both of them concern the effect
of quantized low-energy (infrared) radiation on the dynamics of
atoms and molecules. The first project studies the behavior of
atoms and molecules that are initially in their ground state and
subject to an external electromagnetic field. Then, in a time
interval of length T this external field is slowly changed in a
given and fixed manner; slowly meaning that T is very large on the
time scale of the atom or molecule. The goal is to understand why,
in an experiment, the system would stay close to its instantaneous
ground state at all times. The main mathematical problem in
proving this within non-relativistic quantum electrodynamics is to
show that the ground state eigenvector and its energy are smooth
functions of the external field configuration, even though the
ground state energy is embedded in the continuous spectrum. To
analyze this problem the renormalization group analysis of Bach,
Froehlich, and Sigal is simplified and adjusted to the problem at
hand. The second project concerns the phenomenon of relaxation to
the ground state of excited atoms and molecules. Under the
assumption of an infrared cutoff this problem has recently been
completely analyzed by the PI and his collaborators. The goal now
is to remove the un-physical assumption of an IR cutoff and to
show that no infrared problem occurs, that is, that only finitely
many photons are emitted.

This is a project devoted to the mathematical analysis of
dynamical aspects of light (photons) interacting with atoms and
molecules. It is motivated by fundamental mathematical and
physical problems, the physics problems stemming from every day
phenomena and from low energy laboratory experiments (neon lamp,
quantum chemistry, laser light etc). More specifically, the
proposed research contributes to a rigorous mathematical
understanding of basic physical phenomena, such as the existence
of ''adiabatic limits'' and the relaxation to the ground state of
excited atoms and molecules. The existence of adiabatic limits is
of fundamental importance for our understanding of chemistry,
since much of theoretical chemistry assumes good accuracy of an
approximative theory, called Born-Oppenheimer approximation, whose
justification requires existence an adiabatic limit. The
relaxation to the ground state of an excited atom is an example
where dissipation of energy in an open quantum system can be
derived from first principles. It is also one of the main effects
responsible for the production of all visible light. This project
will deepen our understanding of the physics of atoms and
molecules and produce new mathematical tools that will likely find
applications elsewhere.